COLLABORATIVE RESEARCH: Petrologic, Isotopic, and Structural Evolution of Low Pressure Metamorphism in an Accretionary Complex, Eastern Chugach Mountains, Alaska

The metamorphic and structural consequences of ridge subduction along a convergent margin are not well known, but is significant because virtually all convergent margins will ultimately consume a spreading center. This collaborative project between EAR90-18717 and EAR90-20391 will examine the Chugach metamorphic complex which possesses several unusual features that can be attributed to ridge subduction in the Tertiary. Work will focus on the anomalous low P, high T metamorphic and the structural and kinematic setting which accompanied the formation of this metamorphic assemblage. Results will lead to a general model for ridge subduction-related tectonics.